Algorithms for the Building of Model Proteins Using Structural Homology

Because of innovations in the biotechnology industry,protein sequence data is becoming available at an even increasing rate. Since structural information obtained from X-ray crystallography or NMR analysis is obtained much more slowly, there are many proteins critical to ongoing research for which amino acid sequences are known but atomic coordinates are available. The research proposed here is designed to develop methods to determine the molecular structure of a protein based only on its amino acid sequence and its similarity to other proteins for which Cartesian coordinates are known. These methods will then be incorporated into a computer program which will be sold as a commercial product.***//